Applications of Frontal Chromatography to Multicomponent Systems

This work by Profs. Jon F. Parcher and Kwang S. Yun of the University of Mississippi focuses on fundamental studies of phase distribution equilibria using chromatographic techniques and is supported by the Analytical and Surface Chemistry Program in the Chemistry Division. Chromatographic experiments will be carried out which will yield the glass transition temperature of polymers. The data will be used to test and develop models for the correlation of the glass transition temperature with composition. Chromatographic approaches will be developed for the measurement of the sorption of supercritical fluids, including carbon dioxide, in polymer matrices. Measurement of the corresponding swelling of the polymer will yield the molar volume. Phase transitions produced by the sorption process will be determined. This research project will examine the interaction of supercritical fluids as mobile phases, particularly carbon dioxide, with polymer materials as stationary phases to obtain basic thermodynamic information about the uptake of mobile phase components by the stationary phase. The approach to making these measurements is chromatographic and is unique. Success will establish an entirely new way to obtain this information which would be superior to methods currently in use. The results of this study will have immediate application in the separation of complex chemical mixtures and in the production of plastics.